Support for Participation in the International Astronomical Union for U.S. Participants in the 1991 General Assembly of the International Astronomical Union (IAU), July 1991

Participation by U.S. astronomers in the meetings of the International Astronomical Union (IAU) is important. Over one- quarter of the active U.S. research astronomers are working on projects in collaboration with foreign scientists. Several large foreign instruments which have unique capabilities are routinely used by U.S. astronomers. The largest and most important international meeting is the General Assembly of the IAU. Unlike many other international scientific unions, the IAU emphasizes scientific sessions and presentation of research results. It is important for the continued health of astronomy in the U.S. that American scientists be able to participate in these meetings. The IAU meets every 3 years. The IAU General Assembly will meet in Buenos Aires, Argentina July 23 to August 1, 1991. The American Astronomical Society (AAS) will organize a program of grants for travel to attend the IAU General Assembly and its associated meetings. Applications for travel to the General Assembly will be accepted by the AAS, and awards will be decided by a selection committee chosen by the U.S. National Committee for the IAU. The travel grant program will be publicized by the AAS at its meetings and through continuing announcements in the AAS Newsletter.